Development and Application of Solid Phase Oligonucleotide Synthesis Supports

With this award, the Synthetic Organic Program and the Office of multidisciplinary Activities are supporting the research of Dr. Marc M. Greenberg of the Department of Chemistry at Colorado State University. Dr. Greenberg will focus his work on developing solid phase oligonucleotide synthesis supports. The resulting protected oligonucleotides have important biological properties and the work has important biotechnical implications. The focus of this research is the development of orthogonal linkers for solid phase oligonucleotide synthesis that utilize known photochemical and organometallic reactions, and conjugation of the biopolymers released from these novel supports. Conjugation methodology will focus on the formation of bonds between oligonucleotides and peptides as well as between two oligonucleotides. The methodology will be particularly useful for the synthesis of RNA molecules.